Laboratory Studies of Tropospheric Sulfur Chemistry

The atmospheric sulfur cycle has been a subject of intense interest to environmental scientists for many years because of the need to assess the contributions of biogenic and anthropogenic sulfur to such problems as acid rain, visibility reduction, and climate modification. In heavily industrialized regions such as the eastern United States and much of Europe, anthropogenic sulfur emissions exceed natural emissions by about an order of magnitude. On a global scale, however, biogenic sulfur emissions are thought to approximately equal those from anthropogenic sources. An understanding of the biogenic sulfur cycle is thus required in order to establish a baseline against which anthropogenic perturbations can be compared. This research program is three years in duration and involves continued laboratory studies aimed at elucidating the kinetics and reaction mechanisms which control the atmospheric oxidation of reduced sulfur compounds. Direct observation of reactive intermediates and relatively stable products in "real time" is emphasized because only through such observations can results with a unique interpretation be obtained. The experimental methods to be employed involve coupling laser flash photolysis production of unstable reactions with time-resolved detection of intermediates and end products by laser induced fluorescence, atomic resonance fluorescence, long path UV-visible absorption, or tunable diode laser (infrared) absorption. Whenever possible, experiments will be carried out under atmospheric conditions of temperature, pressure, and gas composition.